Development of a Complete Computer Design Environment

A design environment is being developed in which computer engineering students participate in a year long senior design sequence integrating material learned and practiced in all previous courses and laboratories. Working in groups, students are given the responsibility to design a computer-based device. Each group designs both the hardware and the software in the C language, produces a prototype, and writes the documentation. Emphasis is placed on the software to hardware interface which includes system software and interrupt routines. The major equipment to support this effort are an advanced program development system, logic analyzers, oscilloscopes, and an EPROM programmer.